Intermediate Energy Nuclear Research

9412680 Segel Research will be carried out at CERN on determination of the neutron and proton spin structure functions. Polarized muons will be scattered from polarized hydrogen and deuterium targets. The experiments will be carried out in collaboration with a large group of US and European researchers, the Spin Muon Collaboration. These measurements will help identify the fraction of the nucleon's spin carried by quarks and gluons, test fundamental sum-rules related to electroweak interactions, and probe the strange quark content of the nucleon. ***